University of Tennessee, Knoxville, High-Performance Network Connections Initiative-vBNS Phase

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in distributed modeling and computation; collaboration among distributed participants; and remote sensing, control and visualization. Collaborating institutions include the Center for Research in Parallel Computing sites: Argonne and Los Alamos National Laboratories, rice University, Boston University, University of Illinois and University of Maryland; Lawrence Berkeley and Oak Ridge National Laboratories and the University of Virginia.